U.S.-Bulgaria Mathematics Project Development in Inverse Scattering Problems

Dr. Alexander Ramm of Kansas State University will visit Dr. Vesselin Petkov of the Institute of Mathematics, Bulgarian Academy of Sciences, to prepare a cooperative research project on inverse scattering problems. The resulting proposal is intended for consideration under the U.S.-Bulgaria Cooperative Science Program and if successful, should contribute to our knowledge of an open theoretical problem in mathematics concerning scattering amplitude.